Workshop: Mineralogy at the Millennium

9907081
Hemley

This award provides partial funding support for a workshop entitled "Mineralogy at the Millennium." The workshop will provide an overview of the most exciting results of research in the broadly defined field of mineralogy and the opportunities for the most promising areas of research in the future. The workshop is to be held at the headquarters building of the Carnegie Institution of Washington which will host the meeting of international researchers in the field of mineralogy.
***